Mathematics and Engineering Best (ME-Best)

Texas A&M International University's Mathematics and Engineering Best (ME-Best) program is awarding scholarships to full-time Computer Science, Engineering, and Mathematics students who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from underrepresented groups. Scholars are being supported through mentoring, peer study-groups, graduate school preparation, and the option of carrying out research with a faculty mentor. The program is establishing internships and employment opportunities for scholars in the region.